High Resolution Models of Tectonics and Magmatism at Mid-Ocean Ridges

Present models of mid-ocean ridge spreading processes fail to explain some major features, such as narrow axial highs. This failure stems from not considering magmatic loading of the near axis region and form not focusing on that region with sufficient spatial and temporal resolution in numerical models. New conceptual models for narrow high and axial summit troughs are suggested involving periodic collapse of thin axial lithosphere under the weight of magmatic loads. New model predictions will be tested against data on fault patterns associated with narrow axial highs, the distribution of axial summit troughs, the age distribution of lava flows as a function of shape of the axis, and the degree of rotation of sections of fast-spreading crust seen in tectonic windows.